Optimization Principles for General Equilibrium Analysis

Two major foundations of modern microeconomic theory are the concepts of efficiency and that of equilibria. These concepts are of practical significance as well, for efficiency is a frequent objective of policy analysis, and an equilibrium is taken as a close approximation to what would happen under various policy alternatives. This project is based on a new approach to the study of competitive equilibria, using two new optimization principles These principles lead very naturally to algorithms to actually compute economic equilibria, and these algorithms offer advantages over existing methods in terms of execution time and reliability. This project extends the theory, mainly in the area of economies with externalities, and continues the development of algorithms. The work in this project is based on two optimization principles that characterize economic equilibria and efficiency. These principles lead to a new proof of the existence of a general competitive equilibrium, to new characterizations of economic efficiency in the presence of externalities, and to new algorithms for computing equilibria. Underlying this work is a new microeconomic construct termed the benefit function. This function measures an individual's preferences and has the property that it can be meaningfully summed across individuals to obtain a total benefit for the economy. The first optimization principle, the zero-maximum principle, states that an allocation of resources is efficient if and only if it maximizes the total benefit and makes that benefit equal to zero. The second optimization principle, the zero-minimum principle, is the dual to the first. It states that the total surplus of income, equal to the total value of profit plus endowment minus the total consumer expenditure required to achieve fixed preference levels, is minimized the rendered equal to zero by an efficient price vector.